Observations and Modeling of Large-Scale Controls on Summer Rainfall in Southwest North America

Abstract ATM-9731089 Gutzler, David S. University of New Mexico Title: Observations and Modeling of Large-Scale Controls on Summer Rainfall in Southwest North America The broad goals of the proposal are to characterize interannual summer precipitation anomalies in the southwestern United States in order to guide future prediction effort. Observational data along with the CCM3 model output will be analyzed. A control run of CCM3 with the SST fixed will be examined for realistic monsoon simulation across the southwest USA. If the simulation is not realistic, sensitivity experiments for artificial topographic relief will be conducted. Water being very important over this region, any new insights into the mechanisms that modulate summer rainfall in the southwest USA will have important social benefits.